Experimental & Theoretical Study of Congestion Control Protocols

The research will develop performance analysis tools and methodologies for congestion control protocols in computer networks. The work includes a detailed study of a Fokker-Planck system, developed by the principal investigator in previous work, using finite difference schemes to solve the Fokker-Planck equations more efficiently and accurately. The study will include delayed feedback in the system, a detailed study of time series models of the Internet round trip delays. It will also include an investigation of statistical models correlating round trip delays with network congestion, a mapping of the real world network parameters, and a comparison of alterative flow control protocols, including both rate based window based algorithms. The rate based algorithms planned for this study are the Dynamic Time Window Protocol, dynamic version of the Leaky Bucket Protocol and the Packet Pair Protocol. The switch schedules will be varied across Fair Queueing, Virtual Clock, Generalized Virtual Clock. Non-work- conserving versions of Generalized Virtual Clock, FCFS Drop Tail and FCFS Random Drop.